US-Central America Joint Workshop: Integrate MARGINS Studies in Central America; Costa Rica, March 2001

This Americas program award will support travel and related expenses for the participation of a
group of US graduate students and Central American scientists and students in a 4 day workshop to be held in Central America. The purpose of the workshop is to integrate the land and marine geological and geophysical information that has been, and is being carried out in southern Central America as part of the Margins program. These studies are focused on both the seismogenic zone and subduction factory objectives and aim to advance our understanding of geological, chemical and biological processes within and near the earth's active and passive margins.

The presentation of the preliminary results of the research will provide an excellent opportunity for the Central American scientists to contribute their input on the interpretation, and discuss the potential for deep, riser drilling to better answer the most fundamental questions concerning those processes.